Engineering REU Site Proposal: Undergraduate Research in Mechanical Engineering

The Mechanical Engineering Department of the University of Minnesota, Institute of Technology has a program of summer research in mechanical engineering for science and engineering undergraduates. Fifteen students will take part in the program. Applicants for the program are asked to submit transcripts, letters of recommendation and an essay. Participants are selected by a panel of faculty members. The program starts with an orientation program in which research projects and facilities are described. Participants are asked to select a project on which to work from a group of twenty-nine ongoing research projects in mechanical engineering. A faculty supervisor monitors the progress of each student and they are given increasing responsibilities as their skills develop.